Postdoctoral Fellowship: MSPRF: Functorial Field Theory Applied to Quantum Phases of Matter

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines such as Artificial Intelligence and Quantum Information Science, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Cameron Krulewski is “Functorial Field Theory Applied to Quantum Phases of Matter”. The host institution for the fellowship is the Perimeter Institute for Theoretical Physics and the sponsoring scientist is Theo Johnson-Freyd.